Tax Savings as a Motive for Corporate Acquisition: Evidence from Before and After the Tax Reform Act of 1986

This project calls for new research to resolve an outstanding controversy in corporate finance: how important were tax considerations in motivating corporate mergers in the early 1980s? This issue is of interest to both public finance and financial economists, and the existing empirical evidence is contradictory. This study will collect additional data on the share prices of acquired and acquiring firms, and investigate the details of the merger transactions. This project will yield interesting empirical results on the takeover process. Specifically, the project will address the following questions. (1) Does the market reward bidders who successfully capture tax benefits? Does the market penalize bidders who fail to optimize the tax consequences of acquisitions? (2) When a bidder fails to capture tax benefits, is there systematic evidence that the acquisition is motivated by other potential gains? (3) Are firms with loss/credit carryforwards less likely to be taken over after the Tax Reform Act of 1986? (4) Are target firms with tax attributes that would have generated tax savings prior to the Tax Reform Act of 1986 offered lower premia after the Tax Reform Act of 1986? Questions 3 and 4 were prompted by the fact that the Tax Reform Act of 1986 effectively eliminated the two main sources of acquisition tax gains - abolishing the benefits from writing up the basis of target assets to their market values and severely restricting the merged firm's ability to offset taxable income with target loss/credit carryforwards.